High-Energy Electrons for the Treatment of Wastewater

This is an award for conduct of research the objective of which is to determination the technical and commercial feasibility of a windowless exit portal for an electron beam emerging from an accelerator tube for use in irradiation of gases, liquids and solids. The research objectives include determination of the optimum design of a transverse nozzle for the windowless design, analysis of the scattering losses, design and production of a complete electron-optical and vacuum system for the electron beam acceleration tube. Results are expected to provide the basis for design and fabrication of a prototype device potentially useful for wastewater treatment, decontamination of hazardous organic substances, disinfection of water, treatment of exhaust gases derived from the combustion of fossil fuels. This is an award for support of Phase II of a project, Phase I of which was initiated under NSF Grant No. 89- 60943 under conditions stated in Program Solicitation NSF 89-30, Small Business Innovation Research (SBIR). Results are expected to provide the basis for engineering design of innovative processes and systems to remove environmental pollutants from waste streams.